Theoretical Studies in Physics

Theoretical research in elementary particle physics and astrophysics will focus on such problems as the role of quarks with unusual properties in the behavior of matter and the effects of intense astrophysical magnetic fields on the spectroscopy of the strongly-interacting elementary particles. Quarks with unusual properties are always a possibility, so it is important to know what effects they would have. Intense magnetic fields may be associated with certain astrophysical phenomena, and their effects on elementary particle spectroscopy may help us to detect them.